Geometric Tools for Algorithms

Title: Geometric Tools for Algorithms

The goal of this project is to develop a set of general algorithmic tools
based on geometry and randomness. Four specific approaches will be
investigated -- geometric random walks, convex relaxations, random
projection and spectral projection. There are basic problems that can be
solved by each technique (i.e., yielding efficient algorithms). These
include convex optimization, approximation algorithms for NP-hard problems
and learning mixtures of distributions. The solutions to these problems
lead to several questions about the applicability and efficiency of these
techniques (e.g. What functions can be sampled efficiently by the random
walk approach? How quickly can the volume be computed? Is there a
relaxation refinement method that improves the integrality gap? What are
the limits of the spectral method?). The PI plans to address these
questions and use the answers to tackle basic open problems in algorithms.

Intellectual merit:
Geometric insights and approaches play an increasingly central role in the
discovery of polynomial-time algorithms for fundamental problems. At a
time when the field of algorithms is growing rapidly, such tools will be
crucial in crystallizing a theory of algorithms that will deepen our
understanding as well as advance the field by aiding in the solution of
key open problems.

Broad impact:
The problems this proposal sets out to explore are of a basic nature, and
originate from a variety of areas, including combinatorial optimization,
machine learning, information retrieval, and Euclidean geometry. Progress
on these problems, in addition to its potential practical impact, is sure
to unravel combinatorial/geometric structure, and is likely to yield new
analysis tools. The research results will form the basis of an
undergraduate course on combinatorial optimization as well as two graduate
courses; course notes for all of these will be available online.